Cosmic-Ray Observational Biases and Heliospheric Effects

Understanding where cosmic rays come from and how they travel through space is a major goal of modern astrophysics. Cosmic rays are high-energy charged particles that constantly move through our galaxy. Studying them helps scientists better understand the Milky Way and the region of space surrounding our Sun. One challenge is that the cosmic rays measured on Earth have already been altered by the heliosphere, the large magnetic bubble created by the Sun that surrounds the Solar System. As cosmic rays pass through the heliosphere, their paths are bent and their arrival directions are changed before they reach Earth. Ground-based observatories also have limits in what they can detect because of their viewing geometry and instrument design. Together, these effects mean that the cosmic-ray sky observed from Earth can look very different from the true distribution of cosmic rays in interstellar space. This project will develop CosmicRayMapper, an open-source software toolkit that corrects for these distortions. The software will help researchers reconstruct the cosmic-ray sky as it appears beyond the heliosphere, providing a more accurate view of the surrounding interstellar environment. The project supports the National Science Foundation's mission by advancing knowledge of our galactic neighborhood and the Sun's magnetic environment, training students and early-career researchers, broadening participation in science, and engaging the public through workshops, science festivals, and educational programs.

This one-year project will create a complete computational framework for reconstructing the large-scale distribution of cosmic rays in the interstellar medium using measurements collected on Earth across energies from 0.6 to 300 TV. The framework addresses two major sources of error. First, the heliosphere changes the apparent arrival directions of cosmic rays, causing large-scale patterns to appear as smaller-scale features at lower rigidities. Second, each observatory introduces additional measurement biases because of incomplete sky coverage and detector limitations. The project's main product is CosmicRayMapper, an open-source toolkit that will: (1) calculate how cosmic rays travel from interstellar space to Earth by simulating about 10 million particle trajectories through advanced models of the heliospheric magnetic field; (2) combine those results with the detector responses of the IceCube and HAWC observatories; and (3) measure reconstruction errors using realistic simulations. The framework will be validated through two complementary tests. The first will start with a known interstellar cosmic-ray distribution, simulate its appearance at Earth, reconstruct the original distribution, and compare the results using measures such as dipole and quadrupole recovery, angular power leakage, and chi-square statistics. The second will apply the same reconstruction method to existing public full-sky maps from HAWC and IceCube. Expected outcomes include the first reconstructed estimates of the interstellar cosmic-ray anisotropy with quantified uncertainties, improved understanding of how the heliosphere redistributes cosmic-ray structure across different angular scales, and a publicly available, versioned software package with tutorials, example notebooks, and a permanent DOI. The project is also well timed to complement observations from the IMAP heliospheric mission and future ground-based observatories such as SWGO.